South Texas Rural Systemic Initiative

This proposal from Texas A&M University - Corpus Christi (TAMU-CC) targets a large area and a significant number of school districts in South Texas, known as the Valley region. The proposed work is organized around four partnership activities:

District and Community Forum to allow STRSI staff to explain the reform activities and gain the acceptance and cooperation of the school and community (especially parental) stakeholders.

Systemic Leadership Institute to annually gather the district Leadership Teams for improving team capacity and for team networking.

Teacher Partner Academy for leadership, content, and pedagogy training for the master teacher who provide the principal intervention in the schools.

Administrative Partner Academy to ensure administrative support and leadrship for the reform.